Analysis of Neural Crest Cells in the Cx43 Knockout Mouse

Cx43 gap junctions play an indispensible role in cardiac morphogenesis, as
null mutant or knockout mice deficient in Cx43 gap junctions die at birth
from cardiac defects involving the right ventricular outflow tract (Reaume
et al., 1995). Using transgenic mouse models to manipulate Cx43 function,
Dr. Lo has determined that the requirement for Cx43 gap junctions in heart
morphogenesis involves the cardiac neural crest cells (Ewart et al., 1997;
Sullivan et al., 1998). Her studies indicated that Cx43 gap junction
communication modulates neural crest cell migration. In the next funding
period, she proposes to investigate the HYPOTHESIS that in crest cells,
signal transduction cascades triggered by growth factor/integrin signaling
generate second messengers that are mobilized through Cx43 gap junction
channels, and in this manner, gap junction communication may help regulate
and coordinate the migration of cardiac neural crest cells. In Aim 1, she
will characterize the in vitro migratory behavior of cardiac crest cells
upon growth factor stimulation and matrix binding, and determine whether
gap junction communication may be altered in parallel with changes in crest
cell migration. In Aim 2, she will examine whether changes in the level of
gap junction communication may affect growth factor/integrin signaling and
the migration of cardiac crest cells. In Aim 3, she will use knockout mouse
models to further examine the role of Cx43 gap junctions in mediating
endothelin/PDGF signaling in cardiac neural crest cells in the developing
embryo. For these studies, she will intercross mice harboring the endothelin
receptor A (ET-A) or platelet derived growth factor a receptor (PDGFaR)
knockout alleles with the Cx43 knockout mice. If gap junction
communication has a role in endothelin or PDGF signaling in cardiac crest
cells, then compound heterozygous animals with a decrease in Cx43 function
and a decrease in PDGFaR or ET-A receptor function may exhibit cardiac
defects similar to those found in the homozygous knockout animals.
Ultimately these studies should pave the way towards the identification of
the signaling molecules traversing through gap junctional channels, and
thus help elucidate on the molecular level, the role of gap junctions in
neural crest migration.